Using Science on a Sphere in Museums: A PLANNING GRANT

The Maryland Science Center (MSC) seeks funding for a planning grant to investigate the potential of Science on a Sphere (SOS), a NOAA-developed research tool that projects real meteorological and geological data sets onto a large suspended globe. MSC will evaluate a temporary installation of SOS as a public exhibit and school group learning tool, as well as hold a workshop for staff from other museums and prepare a report for dissemination.

INTELLECTUAL MERIT: SOS offers a way to present real data on earth and planetary sciences not possible in a two-dimensional format. An advisory group of exhibit and education professionals from three other science centers (Tech Museum, San Jose, CA; SciPort, Shreveport, LA; Arizona Science Center, Phoenix, AZ) and NOAA will add expertise in the evaluation of SOS, which will be carried out by RMC Research Corporation.

BROADER IMPACT: SOS has the potential to become a new tool for science center presentations nationwide. Testing and evaluation results will be shared with other science centers at the ASTC Annual Conference and other means of dissemination.